SBIR Phase I: Real-Time Monitoring System for Multiple Metallic Contaminants in Environmental and Industrial Waters

This Small Business Innovation Research (SBIR) Phase I project seeks to demonstrate the feasibility of a
system that allows for rapid detection and measurement of the concentration of metal ions in water with a
view towards application of this system to monitoring water being released into environmental waters by
industrial companies. Companies discharging water into the environment maintain wastewater treatment
facilities, which frequently use chemicals to remove pollutants from wastewater. Controlling the
efficiency of the treatment process requires real-time monitoring of the treated water. The proposed
system will be capable of providing this capability, which will allow for optimum use of treatment
chemicals — currently treatment chemicals are used in excess to account for potentially large
concentration changes of the target pollutant to be removed. Thus, a real-time sensor system reduces both
environmental impact and cost of treatment. The technology employs optical fibers, which are
chemically modified with sensor molecules whose luminescence properties change in the presence of the
target pollutant.
The broader/commercial impacts of this research are that this technology for real-time monitoring is not
only capable of meeting a critical need for real-time wastewater-treatment process control, but can
potentially address a range of monitoring tasks requiring a robust, portable, and field-deployable
measurement system while offering significant cost advantages compared to existing laboratory-based
systems. Thus, the impact of this project is beyond the initially targeted application to environmental
monitoring in general, exploiting the capability of the technology to accommodate sensors for a variety of
pollutants.